Oceanographic Instrumentation

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from the University of Alaska requests funding for equipment that will be used to support NSF- funded research cruises aboard the R/V ALPHA HELIX, a 133 foot vessel that is owned and operated by the University.